Advanced Development of the Digital Feedback Seismometer

Seismology depends on the measurement of ground motion by sensors involving an inertial mass to produce an accelerogram. This proposal requests support for the development of a seis- mometer that will incorporate a digital controller in the feedback loop mechanism of a force balance accelerometer. The system is constructed so that position of the inertial mass (the error signal) is digitized at a high rate and then sent to a microprocessor which modifies the signal in the desired manner to perform, for example, digital integration or compensation. The microprocessor input is then passed to a digital-to-analog converter or other output device to produce the controlling forces on the inertial mass of the sensor. The seismic signal consequently comes from the controller at a rate and precision (number of bits) tailored to the output desired for any given application. A prototype seismometer of the proposed design will yield the following improvements over current analog systems: overall system simplification, stable linear response and accurate calibration, increased dynamic range and adaptability to a variety of transducer systems.